CESME Teaching Fellow Planning Grant

The Center for Excellence in Mathematics and Science Education (CEMSE) at California State University Fullerton is establishing the partnership for a future Noyce Teaching Fellowship project; conducting a needs assessment to determine specific areas of teacher shortages and interest among STEM professionals in the Fullerton/Orange County area; identifying sources for matching funds; and designing programs that would be offered to CEMSE Teaching Fellows. The project is addressing alignment of the credential and graduate teacher education programs and alignment of four master's degree programs with the National Board Certification process. In addition, the project team is determining how programs might be revised to meet needs of science and math teachers and to address science and mathematics concepts that are least well-understood, and determining appropriate inclusion of information, communication, and educational technologies in the teacher education programs.